Mathematical Sciences: Instabilities in Premixed and Diffused Flames

9403890 Matalon This program is concerned with the dynamic behavior of premixed and diffusion (non-premixed) flames. It is proposed to derive simplified mathematical models that permit the description of flames of general shapes in open and confined environments, and to study dynamical aspects of flame behavior within this framework by means of asymptotic and perturbation methods supplemented by numerical computations. Specific problems that will be addressed include identifying intrinsic instabilities associated with diffusion flames, exploring the dynamics and stability of premixed flames complicated by non uniform flow fields and by effects due to confinement, and examining the dynamics of flame spread over liquid fuels. The significance of the proposed research is enhancement of the current understanding of the complex phenomena involved in combustion processes. The proposed work is not only of fundamental importance to combustion science but has also direct relevance to practical applications. This proposal consists of a basic research program whose aim is gaining fundamental understanding on how the complex chemical and physical processes interact in real combustion systems. The problems under consideration include the burning of premixed combustible gases in open and confined environments which is of interest in various engineering systems, flame spread over flammable liquids which is of great importance in fire hazards with accidental spillage, and the burning of pure (nonpremixed) fuels which is most relevant to fire safety and fire prevention. To gain insight into these problems, and in particular into the mechanisms responsible for the sustenance of the burning and those responsible for its extinguishement, it is proposed to develop simplified mathematical models and analyze them in depth. This approach, which identifies cause and effect, is likely to explain and guide experimental observations. A deep understanding often lead to suggest ions of new directions for experiments and design.